I/UCRC Interagency Agreement (J368): NNL10AA25I_CSFP Membership (OA-10306)

IIP 1063207
University South Carolina Research Foundation
Reynolds, Anthony P.

This proposal provides funding to augment the ongoing research program and to provide a membership for the NASA / Langley Research Center to University South Carolina Research Foundation, Industry/University Cooperative Research Center for Friction Stir Processing.

The interagency funds for a membership in the I/UCRC increase the research activities to expand the knowledge base of the discipline.

The Federal Agency interaction in the I/UCRC creates more potential for technology transfer of the research results and expands the graduate students interaction for future employment.